Novel Optical Interconnection Networks Using Optoelectronic Integrated Circuits

The Principal Investigators will design and experimentally demonstrate a sophisticated and novel photonic interconnection network that interconnects 2-D arrays of optical inputs and outputs. The network is a general volume (bulk) multistage shuffle exchange design using high efficiency fixed optical interconnections along with optoelectronic integrated circuits (OEICs) to provide dynamic routing and signal regeneration. The OEICs are designed specifically to attain the performance necessary to carry data at high bandwidths (> 100 MHz). The routing of signals is determined by the polarization encoded on the light beam on which the data signal or optical power is carried. Furthermore, the circuits are optimized to allow for a high density of similar switches arranged in a 2D array format. For this reason, the OEICs will be fabricated using Ino.53GaO.47As which has been found by the PIs to be compatible with very low power dissipation circuits, hence lending itself to high array circuit densities. Another feature of the system under investigation is that it will be optically (rather than electrically) powered using integrated InP photovoltaic cells for the array elements. Optical powering has the advantages of supplying power with a low level of electrical cross-talk between array elements, and is relatively easily distributed in high density networks where interconnection to remote pixels can be a significant problem. The program involves a close collaboration between two groups at USC -- one whose expertise has been demonstrated in the field of interconnection architecture design, and the other which specializes in the design and fabrication of OEICs in InP-based materials. The combination of disciplines necessary for the successful completion of the project goals will lead to significant advances in the state- of-the-art of photonic interconnection networks. Furthermore, this program is to be complemented by a partnership with photonics industry, enhancing our ability to eventually realize commercial photonic switching networks using advanced device technologies such as those proposed here.